Synthesis and Structure of Polynuclear Clusters Constructed about Polyphosphine Backbones

In this project in the Inorganic, Bioinorganic, and Organometallic Program of the Chemistry Division, Balch will continue the synthesis of ligands, generally containing some phosphine binding sites, that form complexes containing clusters of metal ions. These clusters show promise as sensors for a number of toxic pollutants and as catalysts for some reactions of commercial importance. The following goals will be pursued. (1) The design and synthesis of new polyfunctional ligands for constructing transition metal complexes. (2) To develop the coordination chemistry of these new ligands so that metal cluster forming reactions can be carried out with some degree of predictability and control. (3) The design and synthesis of new metallo- macrocycles which contain metal ions as an intrinsic part of their cyclic structure, and the exploration of the ability of these to bind inorganic and organic substances. (4) To examine the metal-metal bonding in these clusters and their electronic spectra and luminescence. (5) To explore their use as catalysts and in organic synthesis. (6) To initiate photochemical experiments including studies of the reactivity of excited states of these clusters. (7) To explore the ability of monophosphines to function as bridging ligands.